U.S.-Czechoslovakia Physical Chemistry Research on Penning Detachment

This U.S.-Czechoslovakia research project in chemistry is between Dr. R. Stephen Berry of the University of Chicago and Dr. Zdenek Herman of the J. Heyrovsky Institute of Physical Chemistry and Electrochemistry, Prague. The research here is primarily experimental and interpretive, to study collisions of excited atoms and molecules (energy donors) with atomic and molecular negative ions, in particular the detachment of the extra electron of the negative ion by transfer of the excitation energy of the donors to the negative ions. Schematically, the process of principal interest is: A* + B- -> A + B + e. This is closely analogous to the much-studied Penning ionization phenomenon: A* + B->A + B + e. By analogy with the second, the researchers refer to the first as "Penning detachment." The investigation will include the study of related processes such as simple collisional detachment, associative detachment, and chemi-detachment. This project in chemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.